Computer and Information Science and Engineering Graduate Fellowships (CSGrad4US)

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

The Computer and Information Science and Engineering Graduate Fellowships (CSGrad4US) is intended for individuals who have some practical experience following their bachelor’s degree and are now interested in pursuing a research-based doctoral degree. CSGrad4US Fellowships are a part of an overall strategy by NSF's CISE directorate to develop the workforce necessary to ensure the Nation's leadership in advancing CISE research and innovation. The CSGrad4US fellowship provides three years of financial support for the graduate education of individuals who have demonstrated their potential for significant research achievements in CISE disciplines. This award supports the CSGrad4US Fellows pursuing graduate education at this CSGrad4US institution.